Function Theory in Several Complex Variables

Research will be conducted on a number of problems
in Several Complex Variables and Cauchy-Riemann
Geometry. More specifically, the better
understanding of various rigidity phenomena in
complex analysis and complex geometry will be sought.
The study the analytic structure of real surfaces
in the complex space of dimension two, and the
investigation of its intrinsic connections with
many well-known problems in classical mechanics
will be pursued.

Complex numbers and functions of complex variables
have become, since the 19th century, indispensable
tools in many areas of mathematics and in its
application to other areas of science and engineering.
Indeed, the solutions of many problems in the applied
sciences could ultimately depend on improvements in
these complex analytic tools and a better
understanding of their basic properties. For instance,
in material science the standard method for treating
multidirectional stresses in a uniform way is to
represent them as complex numbers or, in more
complicated situations, as complex functions. It then
turns out, for instance, that the direction of the
propagation of cracks in materials is related to the
properties of certain equations associated
with these complex numbers or functions. Results of
the research to be carried out in this project could
lead to the discovery of new properties
of solutions of these equations.